MRI Development: Enabling Lightweight Planetary Scale Services

This project, developing virtual PlanetLab(an emulation Planet Lab), targets verifying whether an experiment attains the same performance and failure behavior as when run directly on the PlanetLab/ GENI system. The work involves network emulation, building a toolkit to ease the development and programming on PlanetLab, investigating control, and managing plane services. At present, only with extreme effort on the part of the researcher is this verification theoretically possible with Emulab. In fifteen years the Internet has gone from an obscure research network known to the academic community to a critical piece of national infrastructure; but, because its architecture is unable to quickly adapt to meet emerging challenges, it is becoming the victim of its own success. Vulnerabilities are being increasingly exploited limiting assimilation of new technologies and support of new applications. To foster the development of a new generation of distributed systems and network protocols, researchers around the world have created a testbed called PlanetLab, enabling research into truly planetary scale services where each researcher may utilize a virtualized slice across a widely distributed set of nodes. PlanetLab currently spans three hundred separate locations worldwide hosting over four hundred active research projects. Consequently, to support network and distributed systems research, NSF CISE has recently proposed constructing GENI (Global Environment for Network Investigations). This work aims to

-Dramatically improve the cost-effectiveness of planetary scale testbeds such as PlanetLab and GENI and
-Reduce the startup time for new PlanetLab/GENI researchers to develop and deploy an experiment.

A transactional service manager that can adapt/survive the myriad types of node failures encountered in practice, simple job and pipe control, and distributed debugger are expected to facilitate the use of PlanetLab. The software toolkit enables research in

-Robust content distribution, Real time multimedia delivery, Security, Routing,
-Network embedded storage and file sharing, Distributed information management,
-Internet Measurement, Distributed resource allocation, and Network layer modifications.